Mechanical Engineering Curricula for the 1990's: Implement-ing Change, Documenting Experience

This project seeks to increase the level of concern about curriculum reform among engineering educators in the mechanical engineering area and to provide a disciplinary environment that is much more supportive of revision and change in the undergraduate mechanical engineering curriculum than appears to exist at the present. The efforts include the following steps: 1) a conference of the Mechanical Engineering Department Heads to discuss ME curriculum during the Spring of 1989, 2) a program of "Awards for Exemplary Experiences with Mechanical Engineering Curriculum Change", 3) a follow-on step to determine what the impact of the curriculum innovation has been after a period of one year to keep attention focused on innovation in undergraduate programs in Mechanical Engineering. The grantee and the institutions of the participants provide funds that are an approximate match for the NSF award. A valuable part of the project is the continuing publication of the papers about the various efforts to improve the curriculum. During the two years of the project this is expected to increase interest in and sensitivity about undergraduate education among those in the Mechanical Engineering education community.